Engineering Research Equipment Grant: EDX/WDX X-Ray Spectrometer System for Membrane Catalysis and Materials Research

This project will establish a sophisticated analytical instrumentation facility based on x-ray bombardment and analyses for the study of material properties. This facility will support a number of research programs (of a highly interdisciplinary nature) ranging from design of polymeric membranes and structure of polymer matrix materials to heterogeneous catalysis and gasification of coal.